Dissertation Research: Microdemographic Community Study in Brazil

This project involves the dissertation research of an anthropology student from the University of Michigan. The study tries to explain variations in fertility levels in a developing country--Brazil-- through the impact of variations in television exposure. Previous studies have suggested that the medium has a `contraceptive effect`, separate from other changes linked to industrialization and urbanization, through the exposure of viewers to new ideas, values, and behaviors. The study will examine the hypothesis that the degree of television exposure affects lifetime fertility and will also focus on the link between TV viewing and attitudes about contraception, the perceived value of children, and notions of ideal family size. The methods include qualitative ethnographic information through participant-observation and intensive interviews, and quantitative data from a survey of 250-300 women in Arembepe, Bahia, as well as 50-80 women in a more rural community with less television availability. The data will be linked to a study on this subject in the region a decade ago. This project is important because it will shed light on the role that television may play in lowering fertility levels in developing countries, and will elucidate the link between demographic shifts and the exposure to new ideas and information. Advances in our knowledge about the causes of family size are important for planners concerned about world population growth.